Theoretical Research on the Terrestrial Exosphere

The region around the earth extending, above approximately 400km, out to many earth radii is called the exosphere. In this region hydrogen is the predominant specie and it has long been thought of as a region where collisions are rare and neutral atoms can travel in ballistic trajectories. This view has been changed recently through observations of the exospheres on both Venus and Earth. The distribution of hydrogen is now thought to be noticeably influenced by resonant scatter of solar Lyman alpha, by charge exchange interactions between H,O and hot H+ as well as neutral-neutral collisions. This theoretical study will attempt to insert many of these processes into the existing model of exospheric dynamics using new high speed computer facilities at the University of Texas. The approach will be to use the monte carlo technique to develop a model that will give a global picture of the concentrations, mean velocity, temperature and velocity distributions under the various input conditions.